Providing Technical Assisstance to Increase the Participation and Competitiveness of Faculty at Minority-Serving Institutions and Minority Faculty in the CAREER Program

This award to QEM will provide technical assistance to junior faculty at minority?serving institutions and eligible underrepresented minority faculty at other institutions to enable them to participate more successfully in the NSF’s Faculty Early Career Development (CAREER) Program. Minority faculty have an essential role in the production of baccalaureate degree recipients of under-represented groups in STEM disciplines as well as in the disproportionate production of minority college graduates who pursue graduate degrees. Consequently there will be the broadening of participation, and enhancing diversity within the Foundation’s programs as a vehicle to achieve the objectives of the America Competes Act.